Triangulated Spaces: Algorithms and Combinatorics

9321799 Dey This project seeks to develop efficient algorithms for triangulating spaces (polytopes, point sets), to design efficient topological algorithms for triangulated spaces, and to understand the combinatorial aspects of triangulated spaces. Triangulated spaces appear in many applications, and have immediate theoretical interest as well. The focus will first be on algorithms for polytope triangulations and point set triangulations in higher dimensions. Finite element methods apply triangulations to decompose the domains, while computer graphics and solid modeling use them to represent objects with simpler components and to manipulate them efficiently. Next, the investigation will concentrate on topological algorithms with triangulated spaces for two problems: (i) determining the homology groups of simplicial complexes in arbitrary dimensions, (ii) detecting if two given cycles on a simplicial complex can be continuously deformed to one another. Computational topology, an emerging field, examines the computational aspects of topological problems. The constructive approaches would inject algorithmic theories into topology, making it more useful in practical applications. To understand triangulated spaces, one needs to know more about their combinatorial behavior. The focus in the latter half of the project will be on such combinatorial questions as counting the number of crossings in a set of simplices and counting the number of combinatorially different triangulations for a point set.